Flocculation Kinetics Using Ferric and Dual Coagulants

This is an award to support research on the factors that affect the rate of flocculation of particles in water suspension when subjected to contacts with metallic salt coagulants and coagulant aids used in processes for treatment of water. Experimental variables being considered are the effects of temperature, coagulant dosage, pH, concentration of suspended substances and sulfate concentrations. Research is being conducted at bench scale. Coagulants include ferric and aluminum salts and the coagulant aids include cationic polymers. Results of this project are expected to improve our understanding of flocculation, an important unit operation conducted in treatment of both water and wastewater. This understanding is further expected to provide the basis for improvement in the engineering design of treatment systems that include flocculation as a unit operation, and in the improvement of existing treatment plants that use this process in their water treatment and wastewater treatment operations.